Vertex algebras and geometry of manifolds

The purpose of this project is to further the understanding of the
relation between vertex algebras and the geometry of manifolds.
This relation, discovered relatively recently, is an infinite
dimensional version of the classical relation between theoretical
physics and mathematics. Indeed, quantum mechanics of a particle
on a manifold is a part of analysis on manifolds. Similarly,
super-symmetric quantum mechanics is essentially equivalent to
the study of the de Rham complex on manifolds. Attempts to carry
this over to the case of the space of loops on a manifold have
created an entirely new Universe of mathematical and physical
concepts. One such concept, vertex algebra, a child of string
theory and infinite dimensional representation theory, has already
proved indispensable in areas as remote form mathematical physics
as abstract finite group theory. Relatively recently, thanks to
work of Gorbounov and Malikov among others, vertex algebras have
been fruitfully applied to several chapters of geometry including
elliptic genus and mirror symmetry.

String theory, a part of quantum field theory and the only
existing candidate for the "theory of everything", while having
not yet achieved its ultimate goal, has enriched modern
mathematics and physics with a dazzling array of new concepts and
new relations among old concepts. Vertex algebra, a concept that
simultaneously generalizes the notions of Lie and commutative
algebra, is one conspicuous example. It has long since found
applications in areas as old and diverse as representation theory,
group theory, combinatorics, and number theory. The present
project is devoted to the exploration of a recently discovered
relation to geometry of higher dimensional spaces.